U.S.-Japan Cooperative Research: Physical Processes in Galaxy and Large Scale Structure Formation

This award will support a two-year U.S.-Japan cooperative research project between Professor Jeremiah Ostriker, Princeton University Observatory, and Professor Humitaka Sato, Department of Physics, Kyoto University. The project, which will include Professor Edwin Turner of the Princeton University Observatory as co-investigator on the U.S. side, brings together American and Japanese theoretical astrophysicists to study problems connected with the formation of galaxies and cosmic large scale structure. On the Japanese side, the research group includes scientists from the National Astronomical Observatory and the Tokyo Metropolitan University as well as Kyoto University. Among the studies on galaxy formation to be investigated are: imprints on the microwave background, phase transition generated structure formation, non-zero cosmological constant cosmologies, the relation of the intergalactic medium to background radiation fields, quasar statistics, structure formation by Doppler instability, gravitational lens statistics, phase transitions in the early universe, and related topics. Most of these projects will emphasize physics other than the purely gravitational interactions that have been studied most thoroughly in the past. It is hoped that this joint study will lead to more permanent contacts between the two research communities.